Mathematical Sciences: Some Topics in Generalized RegressionModels

The research which is proposed here is mainly concerned with two problems in methods associated with generalized linear models: diagnostics for tests of significance and data analytic methods in the presence of overdispersion. While there has been substantial development of diagnostic techniques associated with point estimation in generalized linear models, the research proposed is to study the effects of individual data points on tests of hypotheses concerning parameters of the model. The purpose includes ascertainment of whether the significance of a test is overly dependent on a very small part of the data, and other diagnostic issues. The proposed technique is based on the contributions of individual data points to the likelihood ratio test statistic. The second part of the proposed research concerns regression and analysis where the response variables are like binomial or Poisson but exhibit more variation that would be expected from these probability distributions. Several issues related to this case are proposed for study: (i) the similarities and differences in overdispersion models based on covariates being omitted and based on covariables being measured with error, (ii) the analysis of data when there is overdispersion due to both omitted variables and measurement errors, and (iii) data analytic methods involbing interactions when there is overdispersion present. Regression methods are used to predict what some entity will be or will do based on related information and to determine the strength of association between measurements and responses. The proposed research will enhance and augment the collection of statistical research tools and procedures that are referred to collectively as "regression analysis". This research promises to lead to improvements in the performance of these tools when variables are measured with error and when influencial predictor variables are unknown or unavailable, and therefore omitted. Since this situation is extremely common in experimental and social science, improvements will have a wide positive impact.